Ground Based Lidar Observations of Ozone, Aerosol, and Temperature from McMurdo Station, Antarctica

This project will make lidar measurements of ozone, aerosols and temperature vertical profiles above McMurdo. It is part of the second National Ozone Expedition (NOZE-2) which will be deployed to Antarctica in August of 1987 to study the ozone hole during the austral springtime.